Comparative Social Structure and Dynamics

In this three-year U.S.-Yugoslav cooperative research project in sociology between Dusko Sekulic, Zagreb University, and Randy Hodson, Indiana University, the investigators will study and compare structural changes in labor force and mobility processes that stem from technological change. The researchers will look at the structure of the Yugoslav labor force compared to other industrial and industrializing nations. In particular, similarities and idfferences between the U.S. and Yugoslav labor structure and mobility patterns will be examined. Survey data has already been collected in the Yugoslav Republic of Croatia and at least two other Yugoslav Republics will be surveyed in the coming year. The U.S. side will assist in data analysis and provide comparable information on the United States. This is an important international project. The International Sociological Association for Social Stratification and Mobility has strongly encouraged comparative research in this field to enable comparative analysis across divergent societies. Inclusion of Yugoslavia in the data base will provide information about a highly pluralistic and socialist country. This project was approved by the U.S.-Yugoslav Joint Board on Scientific and Technological Cooperation and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.